Development of High Resolution Environmental Tracers to Enhance Interpretation of Ice Core Chemical Records

Trace constituents preserved in ice cores from the Greenland ice cap Summit have been used as markers of climate change. This research would develop a more precise method, using Inductively Coupled Plasma Mass Spectrometry, to measure concentrations of salts and metals in both snow and short ice cores from Summit. A new ice-core sampling and injection system attached to the mass spectrometer would allow determination of these chemical species in thinner strata of ice representing less than 10 years of ice deposition, a much finer time resolution than possible with past methods. These results will be examined to see if the ice cores fully preserve the same constituents as found in fresh snow. From the ice-core data, climatic shifts over the last 300 years will be evaluated.